Experimental Evaluation of Dynamic Stiffness of Footings

The principal objective of this three-year U.S.-Yugoslav cooperative research project in earthquake engineering and hazards reduction between Branislav Verbic, Faculty of Civil Engineering at the University of Sarajevo, and Anestis Veletsos, Rice University, is to evaluate the response of building foundations supported in sandy soil and on clays when subjected to seismic motion. The investigators will test current theoretical solutions to determine foundation stiffness and rigidity under simulated seismic conditions; and compare their data with past tests. If significant disagreement is found, new improved theoretical solutions will be proposed. This proposal combines the theoretical and experimental expertise of the U.S. and Yugoslav scientists. Soil/structure interaction studies performed under seismic duress have significant implications for building and site construction in earthquake sensitive areas in the U.S. and Yugoslavia. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal Yugoslav institution. Dollar funds are included for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.